STTR Phase I: A real-time Collaborative Click Fraud Detection and Prevention System

This Small Business Technology Transfer (STTR) Phase I project will provide a commercial solution to click fraud identification and prevention. The current existing solutions can not detect the so-called software click. This STTR project proposes a real time collaborative click fraud detection and prevention system to detect these software clicks. The approach draws on data mining techniques for fraud identification using detailed user activities. An accurate and efficient classification method based on association rule mining and data stream mining will be formulated to identify the click frauds.

The system will protect Pay-Per-Click advertisers from click fraud and improve their return on investment. The new data mining techniques discovered during the course of this research will be applied in multiple fields related to online business marketing, user analysis and other fraud identification processes.